Acquisition of Materials Characterization Instrumentation: X-Ray Diffraction and Upgrading of an SEM

9413426 Mogk This award provides 70 per cent of the funds required for the acquisition of an x-ray diffractometer system to be installed and operated in the Imaging and Chemical Analysis Laboratory at the Montana State University. The Montana State University is committed to providing the remaining funds necessary for the acquisition of the equipment. The Imaging and Chemical Analysis Laboratory is a centralized facility that operates and maintains a pool of instruments dedicated to the characterization of the composition, chemistry, and structure of materials for the physical sciences, life sciences, and engineering disciplines at Montana State University. The new x-ray diffractometer system fills a basic gap in their instrumental pool. ***